Probing for N*s with Linearly Polarized Photons in Hall B of JLab

The probe afforded by a beam of linearly-polarized photons allows
one to gain access to several observables in photonucleon reactions,
which otherwise would not be measureable. This polarization axis
of the photon beam breaks the azimuthal symmetry of the reaction,
thereby introducing an azimuthal dependence in the differential
cross section. This additional information on the angular dependence
opens the door to the measurement of a host of observables which are
accessible only with a beam of linearly-polarized photons; consequently
it provides important constraints on the nature of the photon-nucleon
reaction. Such polarization observables are necessary for extracting
the spin/parity of the broadly overlapping baryon resonances. Two PhD
students at Idaho State University will analyze the g8b data set from
Hall B of JLab. Their thesis topics will primarily focus on the search
for baryon resonances (N*s) that decay though either the rho meson or
hyperon channel, respectively.

The PI has been very active in coordinating research efforts with nuclear
physicists in Latin America. Over the past six years, he has been awarded
five NSF grants, which serve to promote dialog among faculty members and
students of North American and South American institutions. Through these
efforts, he seeks to strengthen existing links and forge new ones within
the broad scope of the international nuclear physics community. Such
academic relationships, moreover, will further serve to strengthen the
scientific research program between our respective continents. The PI
expects to use this NSF award as a platform towards attracting additional
grant money for these broader impact activities.